ICM 2018 Harmonic Analysis Satellite Conference

This award provides funding for US-based participants in "ICM 2018 Harmonic Analysis Satellite Conference" from July 24 to July 29, 2018 in Rio Grande do Sul, Brazil. The conference is devoted to recent developments in harmonic analysis and many applications to other disciplines. This conference will feature approximately 30 speakers of the highest international level in the field, which have been carefully recommended by the Scientific Committee. The fund is used to support US based Plenary Speakers who do not have Federal Funding and US based junior, minority, and/or female researchers, priority given to those presenting short talks or posters in the conference.

More information will be made available at: http://www.ufrgs.br/haicm2018